Acquisition of a Noble Gas Mass Analysis System

This award provides 64% of the funds needed to acquire a noble gas mass spectrometer system to be installed and operated in the Department of Geological Sciences at the Ohio State University. The University is committed to providing the necessary remaining funds. The principal use of the equipment will be for geochemical research and teaching using the radioactive decay of potassium to argon for dating geologic ages of minerals and rocks.